An Integrated Program of Field - and Laboratory - Based Instruction and Undergraduate Research Based on Vibracoring and other Shallow-Water Sampling

9351962 Smith A pontoon barge is used for vibracoring and other shallow-water sampling in an integrated program of field- and laboratory- based instruction and undergraduate research in geology. It is used in the introductory-level courses of Introductory Geology, Introductory Oceanography, and Environmental Science; in the upper level courses of Sedimentology and Stratigraphy, Invertebrate Paleontology, Glacial and Quaternary Geology, Hydrogeology, Seminar in Environmental Geology, and Seminar on Tropical Carbonate Geology; for approximately two undergraduate research projects each year; and for the Lawrence Summerscience Program, a two-week intensive program for high-school juniors. Currently, most of the hands-on activities already incorporated into courses are also the subjects of independent undergraduate research. The program is an example of how field and laboratory-based instruction and undergraduate research can be integrated, focused on the study of local Quaternary geology, and implemented using relatively inexpensive and versatile equipment. ***